Category III: AI-Driven National Synthesis Hub for Convergent Disaster Research and Intelligence

This planning project will design a national, artificial-intelligence-enabled hub that connects existing disaster archives and turns them into an active resource for science and decision-making. By making it easier to ask questions in plain language, integrate engineering and social-science evidence, and obtain results tailored to the user's role, the hub will help the nation prepare for, respond to, and recover from hurricanes, wildfires, floods, earthquakes, and other catastrophic events. It will broaden access for under-resourced communities, support training of the next generation of disaster researchers and practitioners, and advance the national interest by strengthening resilience, public safety, and the scientific basis for federal, state, and local disaster policy.

The project will plan DISCAT 2.0, a next-generation disaster data infrastructure that builds on the University of Delaware's Disaster Research Center and the prior NSF-funded DISCAT 1.5/InfoChain system. DISCAT 2.0 is organized as a four-tier agentic architecture: Adaptive Knowledge Broker; reasoning Domain Agents; Functional Agents; and a federated data layer. Planning activities will map user personas and analytical workflows through community workshops with researchers, emergency managers, and policy stakeholders; refine semantic reasoning and human-AI interaction patterns via Wizard-of-Oz prototyping; develop ontologies and knowledge-graph schemas that anchor the Domain Agents in established disaster-science concepts; define API standards, containerization, and security and governance protocols for sensitive data; and validate feasibility through scenario-based workflow drills, latency testing, and data audits. The result will be a rigorous, community-informed blueprint for a national-scale, AI-driven synthesis hub for convergent disaster research, advancing intelligent systems, knowledge representation, and federated data integration while positioning long-standing disaster archives as a shared national asset for resilience and response.